Mathematical Programming Modeling Systems in a Database Environment: Collaborative Research with MIT

This proposal outlines an extension of recent work on structured modeling frameworks that includes the development of a prototype modeling system based on this extended framework. The proposal is interesting because it involves a very creative and productive investigator in a project that includes elements from three important areas of operations research: model representation, construction of modeling systems, and algorithmic design. The development of a prototype mathematical programming modeling system, for which the database environment would itself generate the models, represents an important next step in the design and application of modeling systems. A number of management scientists and other researchers are interested in this area but the approach suggested in the proposal, which would apply object-oriented programming languages to address model construction, is considered to be novel and highly promising. The scope of the project is ambitious but necessarily so, with the potential for a high payoff regarding issues of model management that would be of central theoretical and applied interest to the operations research and management science research communities.